Collaborative Research: Social Value of Information and Coordination

This project examines how public and private information affect equilibrium allocations and welfare in economies with strategic complementarities. It aims at providing a framework to address important questions such as: what is the optimal transparency in the information disseminated by economic statistics or announcements by policy makers? Does aggregate volatility decrease, and welfare improve, as agents privately collect more information? And, what policies may help enhance coordination by reducing non-fundamental volatility?

The main contribution is in showing how these issues can be addressed by investigating the relationship between the social value of information and coordination. When coordination is socially valuable as in the case of markets with investment complementarities or demand spillovers, an increase in the precision of public information increases welfare despite the fact that it may lead to more volatility in aggregate activity. On the contrary, when the coordination motive is not warranted from a social perspective, as in the case of asset markets that are best described as beauty contests, more transparent public information may reduce
welfare, whereas more precise private information is welfare-enhancing. Similarly, constructive ambiguity is optimal when there is a high risk that more precise public information will facilitate coordination on socially undesirable outcomes, such as a currency crisis or a bank run.

The results deriving from this research are expected to be relevant for both theoretical and applied research concerning economies with strategic complementarities such as production, network or demand externalities, incomplete financial markets, and Keynesian frictions. They are also expected to play an important role in the understanding of crises phenomena, such as currency attacks, bank runs, debt crises, or political change.